U.S. GLOBEC: Life History Events of Calanus Finmarchicus (Copepoda) on Georges Bank, A Component of U.S. GLOBEC: Ichthyoplankton and Zooplankton in the Georges Bank Region

Specific studies are designed to examine aspects of life history events in one of the GLOBEC target species, the copepod Calanus finmarchicus. Individual vector models will be developed for life history events, population growth, and advective transport for C. finmarchicus in the Gulf of Maine and over Georges Bank. Mandibular morphology and gonad development will be used to quantify the proportions of individuals that decide to enter diapause or to mature. Tooth formation will also serve to indicate when stocks are ending or continuing diapause in autumn and winter months. Diapause/maturation decisions and sex change frequency will be examined by analyses of DNA fragments. These studies will document interannual environmental factors that influence sex determination. Wax storage rates will be estimated by video microscopy and Iatroscan chromatography. Work done by this project will constitute the western Atlantic component of a international program titled TransAtlantic Studies of Calanus finmarchicus. Parallel studies on life history decisions, sex change frequency, and lipid storage will be conducted off Norway (two latitudes), Iceland, northern Scotland and in the North Sea. +- ±- + _ Ûª▓ ÑOh ª' +'ª▒0 h + Õ $ H l + ¢ ╗ D R:\WWUSER\TEMPLATE\NORMAL.DOT Sheryl Miller @ -+Y+ª) @ -+Y+ª) @ Ù░E S u m m a r y I n f o r m a t i o n ( ++++++++++++ ` + ++++++++++++ ++++++++++++ ++++++++++++ ▀ @ ªí- Microsoft Word 6.0 9 Õªe =- e O ª O < < < < < < < f f f f f f p f 1 z z z z z z z z & ( ( ( F = = ÷ = T ' ` < z z z z z z < < z z z z z z < z < z & P X < < < < z & z - z 0"